Long and Medium-Term Research: The Exclusion Principle Derived from Nonrelativistic Quantum Mechanics

Long & Medium-Term Research: The Exclusion Principle Derived from Nonrelativistic Quantum Mechanics This award is under the Long and Medium-Term Research at Foreign Centers of Excellence Program, which enables U.S. scientists and engineers to conduct three to twelve months of research abroad at research centers of proven excellence. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Dr. Jonathan M. Robbins to work with Dr. Michael V. Berry at the HH Wills Physics Laboratory in Bristol, England. Their research concerns the Pauli exclusion principle. Currently regarded as an independent postulate in nonrelativistic quantum mechanics, or else as a consequence of quantum field theory, their aim is to investigate possible connections between the exclusion principle and the geometric (or Berry) phase, and to see whether it can in fact be derived from the dynamics of the Schrodinger equation. The award recommendation provides funds to cover a stipend for twelve months.